Organometallic Chemistry of Main Group 14 Elements Si, Ge, and Sn

This grant in the Organic and Macromolecular Chemistry Program supports research of Professor Satoru Masamune, which is directed at the synthesis of new bonding types for molecules that contain silicon(Si), germanium(Ge) or tin(Sn) atoms as replacements for the usual carbon atom. These new structures will undoubtedly lead to new chemistry and physical properties and possibly to important new materials. This research will be concerned with two specific aspects of Si, Ge, and Sn chemistry: 1) the synthesis and chemistry of small rings including the cyclopropane, bicyclobutane, and tricyclobutane (tetrahedrane) systems which consist, fully or partially, of Si, Ge, or Sn, e.g., tetrasilatetrahedrane and (mono)silatetrahedrane; and 2) the construction and characterization of multiple bonds of the digermene, disilyne, germathione, and silyne types. These two series of systems are chemically interrelated and the compounds in one series are converted into those in the other series. Cyclotrimetallanes and dimetallenes and tetrasilabicycloı1.1.0!butane derivatives have already yielded to synthesis and the initial ground work has been completed. Additional work will systematize the now known systems. Major emphasis will be on the synthesis of tetrasilatetrahedrane and disilyne derivatives, and parent disilene and digermene.